Effective New Methods For Synthesis of Chiral Molecules

The foci of this research are twofold. First, stereoselection at the steady state, a conceptually new method wherein reaction topology dictates stereochemical outcome, will be used to develop new synthetic methodology. Second, a prochiral auxiliary approach will be used to produce chiral anilides. An international component provided by the US-Japan Program enhances the proposed research.

With this Accomplishment-Based renewal award, the Organic and Macromolecular Chemistry Program and the U.S.- Japan Cooperative Research Program are supporting the research of Dr. Dennis P. Curran of the Department of Chemistry at the University of Pittsburgh. Professor Curran will focus his work on developing stereoselection in organic reactions. The ability to control stereochemistry in synthesis is of fundamental importance in and beyond the discipline of organic chemistry and into such areas as the production of pharmaceuticals. A collaboration fostered by the US-Japan Program will increase the potential of the proposed work.